Equipment for Data Ingestion, Processing, and Storage, and to Develop a Meteorological Computational and Visualization Facility

The State University of New York at Stony Brook is requesting support to purchase a weather ingest computer, disk space, a Proxima projector display system, and a PC workstation. The equipment will be used to establish an 11-seat meteorological computational and visualization laboratory for undergraduate education and research. This equipment will allow SUNY to serve as aa dedicated data acquisition site for the Unidata community and serve as a real-time data distribution site. SUNY's meteorology department will be able to continue its growth in atmospheric sciences and enhance educational instruction and research opportunities for students and faculty.